U.S.-Japan Joint Seminar: Diagnostic Ultrasound of the Prostate and Bladder / Washington, D.C. / October 1988

This award will support the participation of U.S. scientists in a seminar on "Diagnostic Ultrasound of the Prostate and Bladder," organized jointly by Drs. Martin Resnick of Case Western Reserve University and Hiroki Watanabe of the Kyoto Prefectural University of Medicine, Kyoto, Japan. Participants from the United States and Japan will meet in Washington, D.C. during October 1988. The seminar will provide a forum for the exchange of data and ideas in the rapidly advancing field of diagnostic ultrasound. Discussions will focus on the application of transrectal and transurethral sonography to the evaluation and management of patients with diseases of the prostate and bladder. Ultrasound techniques offer tremendous potential in screening for and staging certain diseases, such as cancer of the prostate and bladder. This seminar, by bringing together leaders in urologic ultrasound research from our two countries, will help to establish common diagnostic criteria and lead to increased cooperative efforts.